Collaborative Research: CSAwesome: Transitioning Teachers from AP CSP to CSA with Differentiated Professional Development

The College of St. Scholastica and Elms College will lead a small, High School Strand Research-Practitioner Partnership (RPP) to investigate how to best prepare and support teachers who are new to CS as they transition from teaching the AP Computer Science Principles (CSP) course to AP CSA Java course. Rising demand for high school AP computer science (CS) courses, initially for CS Principles and now for CSA, has highlighted a need for more teachers to be trained in the more advanced CSA course. However, this task is challenging because CSA has a steeper learning curve as, unlike blocks-based programming environments, the text-based nature of Java introduces syntax errors and another layer of complexity in writing and debugging programs. Well-designed differentiated professional development (PD) is necessary to meet individual teachers at their level and successfully build their skills and confidence to teach CSA. The RPP consists of researchers who are College Board endorsed providers of the CSAwesome AP CSA curriculum and professional development (PD), and practitioners who are AP CSA master teachers who are leading differentiated CSAwesome pilot PD. The RPP team will use a design-based implementation research (DBIR) RPP model utilizing an iterative approach to refine the CSAwesome curriculum and professional development to meet the needs of teachers transitioning from AP CSP to CSA. The RPP’s goal is to Increase the number of trained teachers (60 over 2 years) who can teach AP CSA and their ability to recruit and support diverse students in order to broaden participation in advanced CS courses.

CSAwesome will utilize design-based implementation research in a researcher-practitioner partnership (RPP) to refine curriculum and PD to support the transition from CSP to CSA for both teachers and students. The goals for this project include 1) establishing a sustainable RPP community of researchers and practitioners focused on supporting the transition of new to CS teachers from CSP to CSA, 2) developing and implementing differentiated PD that includes equity-based pedagogical content knowledge for 60 teachers transitioning from teaching CSP to CSA, and 3) improving the CSAwesome AP CSA curriculum and teacher resources to support the transition from CSP to CSA using a co-design approach with practitioners and researchers. The project will study to what extent the differentiated PD and curriculum support teachers in gaining the content knowledge and pedagogical content knowledge to teach AP CSA and, in particular, support the needs of low-income and female students in computing.